III: Small: Do-It-Yourself forms-driven workflow web applications

Emerging Do-It-Yourself database-driven web application
projoect aims to (1) enable non-programmers to rapidly build custom
data management and workflow applications and (2) to promote
a novel pattern of interaction between application owners and
programmers. Their beneficiaries are organizations, in need of long tail
web applications, that cannot afford the time and money needed to
engage into the conventional code development process.

Do-It-Yourself platforms must maximize two metrics that present
an inherent trade-off: the simplicity of specification and the
application scope, which characterizes the class of applications
that can be built using the platform’s specification mechanism.
The proposal introduces two scopes with interesting trade-off
features. Namely, in the "All-SQL" scope and the (more limited)
"forms-driven workflows" scope each application page consists
of a report (modeled by a nested query) and forms and actions in the
report's context, leading to updates. The limitations have practically
minor effects on the scope but they enable simple specification and
automatic optimizations, studied in the proposal, such as:
1. automatic creation of reports by choosing between the candidates
using information theoretic criteria relying on constraints captured in
the limited models.
2. summarization of applications as workflow specifications by
analyzing the dependencies between updates and queries. Vice versa,
the proposal shows how simple workflow primitives translate to queries
(reports) and updates (forms and actions).
The proposal also provides an unlimited model of web applications,
where programmers introduce code components and interface them
with the "limited" part via queries and updates.

The proposed models of database-driven web applications will impact
the education of both Computer Science (CS) and non-CS students
that need to comprehend web applications at a high conceptual level.
For further information see the project web page at
http://www.db.ucsd.edu/forward